Mathematical Sciences: Dynamical Systems with Symmetry: Applications to Physical Problems

9502266 Silber This work is supported by a National Science Foundation Faculty Early Career Development Award. The research component will focus on the further development of mathematical methods of equivariant dynamical systems for application to specific physical problems. These include hydrodynamic models of rotating convection and of magnetoconvection, models of Josephson junction arrays, and models applicable to combustion or solidification problems in various two- and three- dimensional geometries. In each case, the focus is on instabilities for which there is clear evidence that symmetry plays a central role. An essential component of the proposed research is to compare theoretical results, based on model- independent group theoretic/dynamical systems methods, with those obtained by direct numerical simulation of the governing differential equations. The education component will include course development in applied dynamical systems at the undergraduate level, curriculum development at the graduate level, graduate student advising, mentoring, and organizing graduate seminars. The National Science Foundation strongly encourages the early development of academic faculty as both educators and researchers. The Faculty Early Career Development (CAREER) Program is a Foundation- wide program that provides for the support of junior faculty within the context of their overall career development. It combines in a single program the support of quality research and education in the broadest sense and the full participation of those traditionally underrepresented in science and engineering. This program enhances and emphasizes the importance the Foundation places on the development of full, balanced academic careers which include both research and education.